Workshop on Computational Models and Realizations, St. Louis, Missouri, November, 1985

A Workshop on computational Models and Realizations is planned in St. Louis in mid-November 1985. It is intended as a forum for discussion of the relationship of formal models for concurrent computation to the physical realizations of machines that can reliably carry out such computations. The goal of the research to be discussed is one of providing a firm theoretical basis for the specification, verification, and physical realization of distributed machines for carrying out concurrent computations in an environment lacking a global clock.